CBET-EPSRC: Multiresolution Wavelet Machine Learning Framework for Rotating Detonation Engine Predictions

Future rocket and jet engines need highly efficient designs to increase power, extend flight range, and reduce emissions. One promising technology is the rotating detonation engine. It uses high-speed explosion waves to create thrust more efficiently than traditional engines. However, the extreme heat and fast chemical reactions inside these engines make them very hard to test in real life or simulate accurately on computers. Current computer models are either too expensive for everyday design work or too simple to show critical details, which slows down progress in this field. This project will build a new computer modeling system to solve these problems. It will combine detailed simulations and advanced modeling with new machine learning methods. This approach will enable the prediction of how these engines behave quickly and accurately, allowing for faster and safer development of new technology. Beyond improving aerospace engineering, the project will train college students in advanced computer science and share open-source software with researchers in academia and industry.

This project will establish a new paradigm for predicting turbulent, chemically reacting, and detonation-driven flows. The project overcomes the limitations of existing computer models by combining error-controlled, high-fidelity simulations with physics-informed machine learning. The research team will generate a unique database of highly detailed simulations of detonation-driven flows utilizing a parallel wavelet adaptive multiresolution method, which will concentrate computational resources only where needed to capture sharp shock waves and combustion zones with rigorous accuracy bounds. These high-fidelity datasets will then be used to train novel machine learning models using an adjoint-based optimization approach. This approach will couple the training process directly to the underlying physical equations, ensuring that the machine learning models strictly obey conservation laws and remain accurate when applied to new, unseen engine configurations. The resulting framework will be validated against complex three-dimensional engine configurations. The project will produce a high-performance, open-source software library that runs natively on modern graphics processing unit-dominated supercomputers, providing academic and industrial partners with powerful tools for the simulation, analysis, and design of advanced detonation-driven systems.